DISSERTATION RESEARCH: Temporal Dynamics of Alternative Stables States in a Desert Stream

Understanding the response of ecological systems to disturbance is a central
problem in ecology, and is of fundamental importance to management of
ecosystems from local to global scales. Two major theories of disturbance
are stability theory, which describes the rate of return of ecosystems to
pre-disturbance conditions, and multiple state theory, which describes the
transition of ecosystems between alternative equilibrium conditions (e.g.,
grassland vs. shrubland, etc.). Because desert streams are subject to
frequent and severe disturbance in the form of both flood and drying, these
ecosystems provide excellent models for understanding the response of
ecosystems to disturbance more generally. Prior to the end of the 19th
century, wetlands (cienegas) were a common feature of the Southwestern U.S.
Erosion of these wetlands left most arid streams as bare, gravelbed channels
(arroyos) that represent an alternative equilibrium. Recent observations of
wetland re-establishment at a long-term ecological study site (Sycamore
Creek, AZ) provides an opportunity to evaluate how the alternative
configurations of desert streams respond to disturbances using the context
of stability theory. Following flash flood disturbance, we will measure
primary production and ecosystem respiration in both wetland and gravelbed
sites to determine whether these alternative stable states differ in their
response to disturbance. The Intellectual Merit of this proposal lies in
this integration of single- and multiple-equilibrium theories of ecosystem
response to disturbance. The Broader Impact of this research will be to
improve conservation and restoration efforts of this formerly-widespread and
now-rare wetland ecosystem, and to provide opportunities for training of
graduate students in the design, execution, and analysis of ecological
studies.